The Evolution of the Meaning of Messages in Sender-Receiver Games: An Experimental Analysis

This project analyzes communication in a class of games called sender-receiver games. In such a game, a privately informed sender sends a message to a receiver who then acts in response to the message. The sender and receiver obtain payoffs that depend on the private information of the sender and the receiver's action, and not on the message sent. Sender-receiver games are widely used to study communication issues in accounting, finance, economics and political science where the incentives of the sender and receiver are either perfectly or often partially aligned. These games comprise a rich class of games extensively outlined in theory because of their importance for understanding communication in strategic situations. This project will derive a set of hypotheses concerning the outcomes of these evolutionary games and experimental methods will be employed to assess the performance of these hypotheses.